Evidence and Uncertainty in Human Reasoning

Although some decisions are made on the basis of simple direct
evaluation of "gut" feelings, or the utilities of the various
alternatives, many decisions involve conflicting feelings; and the
conflict-resolution process often takes into account evidence about
some uncertain events.

A typical example would be the conflict faced by a college student who
has an important exam the next day but wants to quit studying to
spend some time with friends. In the process of resolving this
conflict, many students consider the uncertain event that they will do
well in the exam even if they stop studying now. Evidence relevant to
this event includes how difficult the exam is expected to be and how
much preparation the student has done all semester in this course. If
the exam is only somewhat important, and the evidence leads the student
to feel pretty sure of doing well without further studying, the student
will probably decide to quit studying. Even if the exam is highly
important, a student who is very sure of doing well will probably
quit studying.

For some decisions, part of the evidence consists of estimated
probabilities derived from scientific models. A physician may
consider estimated probabilities of recurrence of cancer before
recommending therapy, or a homeowner may take account of earthquake
probabilities in deciding whether to reinforce the foundation.

The present research is based on a recently developed theory of
decision-making under uncertainty. The core idea is that people
categorize uncertain events (e.g., "pretty sure" or "very sure"
of doing well on the exam), and that such categorization is based on
various kinds of evidence (sometimes including probabilities
estimated from scientific models).

The research has two main branches. One focusses on decision
situations involving conflict. We study how decision rules change,
depending on value of goals (for example, a student may use a
"pretty sure" rule for a somewhat important exam, but a "very sure"
rule for a highly important one) and how evidence is used to
categorize the uncertain events. Our preliminary findings suggest
that different evidence weightings are used for different abstract
categories of uncertainty. This part of the research also examines
people's justifications for their decisions, in order to understand
better how justifications relate to actual decision rules underlying
choices.

The second branch of the research focusses on evidence judgment, in
isolation from the ultimate decision--for example, the judgments
that a detective or a scientist might use in forming or confirming
hypotheses. We are interested in the difference between initially
generating a hypothesis and confirming it; in how people react to
conflicting evidence; in how people use base rates and relative
likelihoods as evidence; and in the process of selecting relevant
evidence when it is obscured by irrelevancies.

To summarize, the major goals of the research include testing and
developing a rather new theory of decision making; studying how
scientific probability estimates can be used in policy decisions;
and delineating the differences between exploratory use of evidence
in formulating hypotheses versus hypothesis confirmation.